QLCI: Fault Tolerant Quantum Systems, Architectures and Applications (FTQSAA)

The great promise of quantum science is the creation of devices which exploit quantum mechanical entanglement to solve a broad range of scientific and technological problems inaccessible to classical methods. Revolutionary progress has been made over the last decade, but the vulnerability of entanglement to noise and unintended interaction remains a fundamental challenge. There are many strategies for meeting this challenge and producing “fault-tolerant” quantum devices, many of which have recently been demonstrated at the proof-of-principal level. Ultimately, however, to scale up and build quantum devices with practical utility, fault-tolerant design and engineering techniques need to be integrated across the entire stack, from the underlying hardware to the control software to the co-design of quantum algorithms and applications. The goal of the QLCI: Fault Tolerant Quantum Systems, Architectures and Applications (QLCI-FTQSA2) is to bring together expertise across these levels to both catalyze the interdisciplinary scientific understanding necessary to achieve integrated fault-tolerance and thereby develop the next generation of fault tolerant devices and accelerate scientific progress. The center's vision is that the pathway to quantum fault tolerance is staged, and that at each stage there are important scientific and technological applications to be explored.

The QLCI-FTQSA2 will undertake a deeply integrated approach to advancing fault tolerant platforms, exploiting the co-design of a full quantum software stack together with our institute’s specific quantum hardware platforms and targeted applications. By tailoring algorithms to the specific constraints and capabilities of the hardware, and vice-versa, one can maximize the potential of quantum systems to solve previously intractable problems in domains ranging from drug and materials discovery to particle physics and cosmology. Technical efforts within the QLCI-FTQSA2 are organized into interconnected major activities: (i) engineering fault-tolerance in neutral atom arrays and superconducting quantum circuits, as well as modular hybrid architectures, (ii) the co-design of the entire quantum software stack with a focus on error-correcting codes, compilers and decoders optimally tuned for the native hardware, (iii) exploring certain topological and designer materials, where fault tolerance emerges from the underlying microscopic interactions and (iv) cross-cutting efforts to find optimal applications for near-term hardware with co-designed fault-tolerant algorithms. In addition to the education of a highly-trained workforce literate in the many fields that intersection quantum science and engineering, the Center further aims to translate quantum science to the broadest possible audience, in order to inspire and inform future generations of students, educators, researchers, policy makers, and the public. This will be achieved through a systematic collection of educational and outreach activities including the creation of quantum makerspaces, the hosting of “Quantum Leap” summer schools focused on high school and college-age students, and the development of a baseline tool to assess the level of quantum science education obtained.